ZFS-Related Paramagnetic Phenomena in NMR Spectroscopy

In this project in the Experimental Physical Chemistry Program, Robert Sharp of The University of Michigan at Ann Arbor will study nuclear and electron spin relaxation phenomena of paramagnetic metal ions. Experimental and theoretical work will be conducted to obtain a better understanding of zero field splitting interactions and their effect on paramagnetic relaxation enhancements. A theoretical description of spin motion and spin relaxation phenomena in cases of very strong electron spin-lattice coupling will be developed, and experimental and theoretical studies of the spin relaxation properties of Heisenberg exchange-coupled polynuclear metal centers will be undertaken. These studies will provide information relating to the design of contrasting agents for Magnetic Resonance Imaging and structures of metallo-enzymes. Magnetic Resonance Imaging is a widely used diagnostic technique. In order to obtain the maximum resolution possible at low field strengths, an understanding of the contrast mechanisms is necessary. This research will provide information which will assist in the design of contrasting agents to enhance image quality and improve sensitivity.